Dynamical Response of Carbon Nanotubes - Modeling, Simulations and Experiments

EEC-0303674
Cornell University
Mukherjee

The objectives of this three-year project entitled: Dynamical Response of Carbon Nanotubes," are: (1) dynamic response modeling of ~1-2nm diameter size carbon nanotubes using a hierarchical approach of standard continuum mechanics, enriched continuum mechanics, molecular dynamics, and ab initio electronic calculations: (2) experimental research utilizing the remarkable mechanical, thermal, and electrical properties of carbon nanotubes to create nanometer-scale electromechanical devices (NEMs); and (3) investigate the unique properties of carbon nanotubes for the innovation of a series of novel devices. The research plan includes five tasks: (1) simulations using continuum mechanics; (2) simulations using enriched continuum mechanics; (3) calculations of first principles; (4) experiments of nanotubes for device applications; and (5) comparison of theory and experiments. Three faculty members including the principal investigator from three departments will form the research team.

This award is made under the Nanoscale Science and Engineering Initiative NSF 02-148.